Program for Gender Equity in Science, Mathematics, Engineering and Technology (PGE): Girls Online: GO Team!

Through funding provided by the National Science Foundation, the Nature Museum of the
Chicago Academy of Sciences, in collaboration with El Valor and James Ward School
will create Girls Online: GO Team! , an innovative after-school science and technology
program that targets girls between the ages of eleven and thirteen living in
underserved areas of Chicago. This pilot program will offer engaging science activities
and real-world applications to teachhands-on science and technology to approximately
450 girls over a three-year period. Each semester, between forty-five and ninety girls
will join the GO Team! at locations in their own neighborhoods. Of the girls who excel
in this after-school program, six will be selected every semester to return and team
teach with Academy staff to a new group of participating girls. As the girls grow in
competency and skills, they can attend a more advanced GO Team! the following
semester. The participating girls will attend weekly lab sessions taught by
educators and scientists from the Academy, have fun with their families at a
Kick -Off celebration and a Graduation Ceremony, learn about science and technology
careers during a job shadow day with museum staff and outside professionals, and
learn how science and technology impact their everyday lives. Successful women
mentors will function as teachers and role models to help build the girls' science
knowledge, career choices, and self-esteem.